Geometric Methods for Nonlinear Multivariable Process Control

Chemical processing systems are inherently non-linear. These systems include units such as polymerization reactors, high purity distillation columns, etc. Control schemes presently in use are designed by obtaining an approximate linear model, valid around an operating steady state, and applying linear control techniques. For processes that do not operate around a steady state, for example batch processes, approximate linearization along a nominal time-varying path results in a linear system with time-varying parameter are used. With increasing demand for high product quality (for high value added chemicals, for example), increasing energy costs and enviromental concerns, and, decreasing cost of implementing advanced control systems (with more sophisticated lower cost computers), the use of complex nonlinear control systems is becoming viable. The goal of this research project is to develop a new method for analyzing the behavior of nonlinear processes and to synthesize stable robust nonlinear control schemes for such systems. Specifically the PI's focus is to: 1. Develop a theoretical framework so that the properties and underlying structure of a nonlinear system become clear and well understood. In this direction, results from differential geometric systems theory will be revisited from an engineering viewpoint and solutions to other theoretical problems will be pursued. 2. Synthesize general control algorithms. 3. Develop software tools so that the implementation of the above algorithms becomes straightforward. 4. Experimentally apply the resultant algorithm to a polymerization reactor and thus evaluate the performance of the control schemes.